Interactive Videodisc Physical Science Curriculum

The Texas Learning Technology Group (TLTG) is attempting to develop, pilot and implement a physical science curriculum, entitled the Interactive Videodisc Physical Science Project. The outcome of this project, which incorporates the latest developments in the use of advanced technology, will be a comprehensive 160-hour, two-semester science curriculum, applicable to schools nationwide. The course will be targeted primarily for use with middle school students in the eight and ninth grades where physical science is traditionally taught. However it will be equally appropriate at the tenth grade level. The objective of this effort is to develop a comprehensive physical science curriculum, which has a technology-based delivery system using integrated computer, video, and audio components, and improves learning by increasing the students's in-depth understanding of physical science concepts and skills, by increasing student interest in science, and by improving the ability of teachers to teach science. The TLTG effort is the first national project to develop a complete curriculum (including courseware, teacher resource guides, student manual, classroom management system, and testing system) delivered primarily via interactive videodisc. By utilizing interactive videodisc technology in a comprehensive manner not previously explored to this extent, this project integrates a myriad of sound instructional, technological approaches with proven effective traditional modes of instruction. This project has attracted a significant amount of contributions from private sources both in terms of cash and equipment. It appears that the private sector is becoming more and more aware of the need both to improve science instructional and to use new technologies to better realize the improvements. If the project continues to be as effective as the prototypes suggest, it will stand as a high quality model for adaptation by schools across the country.